Upgrade of an 8.46 Tesla NMR Instrument

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program and the Office of Multidisciplinary Activities (OMA) will assist the Department of Chemistry at University of Wisconsin at Madison to upgrade an existing Bruker AM-360 8.46 tesla nuclear magnetic resonance (NMR) spectrometer. This equipment will enhance research in a number of areas involving mechanism of organometallic reactions, organolithium reagents, organosilicon chemistry, electron transfer in radical cations, characterization of homogeneous catalysts, and fundamental studies of molecular structures and dynamics in liquids. Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies are useful in the areas such as polymers, catalysis, and in biology.